Interpretive Reports for the Fifth, Sixth, and Seventh NAEP Mathematics Assessments

Proposal: DMS 9505461 PIs: Robert Kass, Constantine Gatsonsi, James Hodges, Nozer Singpurwalla Institution: Carnegie Mellon University Title: Bayesian Case Studies Workshop, October 1995 Abstract: The symposium entitled ``Bayesian Statistics in Science and Technology: Case Studies III'' held at Carnegie-Mellon University in Pittsburgh, Pennsylvania, includes extended presentations of applications of Bayesian methods. These applications are in problems in which the statistician is an integral member of the research team. The objectives of the symposium are to: (1)identify and focus attention on specific implementation and theoretical problems that hinder applications of Bayesian methods, and to identify candidate solutions; (ii) provide a forum in which the interplay between statistical theory and practice will be explored in the context of concrete research projects; (iii) provide a small-meeting atmosphere within which junior investigators and graduate students can explore substantial Bayesian applications with experienced researchers; and (iv) produce a volume containing well-documented case studies and data sets suitable for use by researchers, practitioners, educators and students of applied statistics and other quantitative fields. Today there are increasing amounts of background information available to scientists undertaking an investigation. It is important to utilize previousknowledge effectively in designing studies and analyzing data. Bayesian statistical methods are tailored to this purpose. There have been many recent advances in Bayesian statistical theory and computation, but scientific meetings rarely spend substantial time discussing successful applications of these methods to substantive scientific problems. This symposium concentrates attention solely on applications of Bayesian statistics. The application areas range from economics to population biology . The result will be the elucidation of the interplay between theory and practice and the identification of successful methods that will point to important directions for future research. The interactions and dynamics of the workshop will be captured and disseminated via video tape and in the more traditional written form of a conference proceedings.